Surface Nuclear Magnetic Resonance Detection of Underground Liquid Contaminants

0329517
Fukushima
This proposal evaluates Surface nuclear magnetic resonance detection of underground liquid contaminants from New Mexico Resonance, a nonprofit research company, is for an exploratory Phase I project. The long-term objective is to develop a non-invasive and remote sensing scheme to characterize subsurface liquid pollutants and water. Ultimately, this will be an international and academic-industrial collaboration between New Mexico Resonance, Montana State University, Siberian Branch of Russian Academy of Sciences, and Yuzhno-Minusinsk Hydrogeological Enterprise.